GOALI: Carnegie Mellon - Morgan Stanley Mathematical Finance Postdoctoral Fellow

GOALI: Carnegie Mellon - Morgan Stanley Mathematical Finance Post-Doctoral
Fellow

The principal investigators will participate with a post-doctoral fellow
on the development of models for corporate bond default. There are two
general classes of such models. In one of these, the models of
"structural form," default occurs when the value of a firm hits a lower
barrier. These are intuitively appealing, but in their pure form they
suffer from the fact that default is never a surprise. The second class
of models, those of "reduced form," postulate an exogenous event which
triggers default. These have an intensity of arrival of the default
event, and the difficulty with these models is constructing this intensity
process so that the model conforms to market data. This work
will investigate the behavior of models in which the intensity process is
driven by two factors, one evolving on a fast time scale and the other on
a slow time scale. Such models are amenable to asymptotic analysis as the
fast time scale approaches infinity.

Recent years have shown that default on financial obligations is a genuine
possibility, and as a result, many financial instruments which offer some
form of protection against default have arisen. These instruments
are a type of derivative security. Pricing these instruments
and managing the risk associated with them has become a critical
issue for the banks that issue and trade them. A number of mathematical
models have been developed for this purpose, and each of them has certain
drawbacks. Under this grant, the principal investigators and a post-doctoral
fellow will develop a new class of models based on a novel approach
that has proved useful in modeling other types of derivative securities.